Acquisition of a Picosecond Streak Camera System for Time-Dependent Luminescence Measurements of Semiconductor Nanostructures

Project summary
We propose the acquisition of a picosecond streak camera system for time-resolved
measurements of photoluminescence from semiconductor nanostructures. The equipment will be
located in the PIs optics laboratory in Ginzton, where it would be completely accessible to the
co-PIs and their students residing in the same building, as well as to the interested users from
other research groups around Stanford. Ginzton Laboratory has a strong infrastructure for
nanophotonics research, including state-of-the-art optics laboratories of the investigators and a
shared microfabrication facility. In addition, the Stanford Nanofabrication Facility is located in
the neighboring building and is extensively used by the investigators. The streak camera will
complement the existing capabilities of the PIs and broaden their research in the fields of
nanoscale photonics and quantum information processing, which are already major thrusts in the
Ginzton Laboratory. Moreover, the camera will enable research training of a large number of
graduate and undegraduate students from the research groups of the investigators in performing
time-resolved spectroscopy and will thus be important in education of a new generation of
scientists who will exploit nanophotonics at its full potential. The PIs also place an emphasis on
research training of women and other underrepresented groups; for example, there are usually
around 10 women researchers (mainly experimentalists) across their groups.
The streak camera system is capable of unprecedented sensitivity in performing time-resolved
photoluminescence measurements. If the NSF decides to fund this project, the activity that would
result would be time-resolved study of light emitted from photonic nanostructures (e.g., photonic
crystal structures) with embedded emitters, such as excitons in quantum dots or quantum well
impurities. This is crucial for development of novel low-threshold and high-speed lasers and
optical modulators, as well as hardware for emerging technologies such as quantum computation
and quantum communication (e.g., single and entangled photon sources and photon storage
components). PIs are presently leading research programs focused on quantum information
processing in the optical domain and on development of optical interconnects; these programs
would also greatly benefit from the acquisition of the proposed equipment.